Oceanographic Instrumentation

9618784 McDuff This award to University of Washington will provide new shipboard computers and a magnetometer system for use on the R/V Thompson, a research vessel operated as part of the University National Oceanographic Laboratory System (UNOLS). The shared-use instrumentation supported here will assist researchers to conduct geophysical and oceanographic studies throughout the world ocean in 1997 and in future years. ***